Understanding the Landscape of Data-Intensive Research: Coupling US Researchers to the UK e-Science Institute Research Theme Activities

Building on the successful selection and funding of two UK e-Science research themes related to data-intensive computing (3DPAS and DIR; to be hosted by the e-Science Institute, Edinburgh), we will couple US Researchers to the intellectual advances that these year long research themes (2010-11) will engender. This award will support participation by ten US-based researchers in three workshops, as part of the eSI Research themes on data-intensive research to be held in Edinburgh, UK.

Workshops associated with the eSI Research Theme will be organized along the following three tracks: (i) Abstractions for distributed and dynamic data-intensive applications, (ii) Understanding the issues to enable Relational technology to be widely and effectively used in the support of data-intensive methods at extreme scales, and (iii) Algorithms, Software and Cyberinfrastructure for data-intensive research